Molecular Flexibility and the Activation of Complement

Dr. Schumaker is developing a detailed understanding of the mechanism of the complement system. He plans to produce substantial amounts of C1r and C1s, sub-components of C1 (the first major component of the complement system), using the baculovirus, insect cell system and initiate site-directed mutagenesis studies. He will also try to produce X-ray quality crystals of both C1r and C1s. In addition, he will carry out a detailed thermodynamic and kinetic study of dissociation and association rates and dissociation constants for C1, and measure the rates of spontaneous activation. How does an antibody, through interaction with an antigen, trigger the immune response? C1 is a soluble, well-defined macromolecular complex, and understanding how it functions should provide one answer to this important immunochemical question.